A Verification Manager for Adaptive Model Checking

With verification taking about two thirds of the development cycle, formal
methods hold great promise of increasing the productivity of electronic
designers. To overcome the limitations of current formal verification
algorithms, this project explores adaptive model checking techniques. Model
checking is a technique for the verification of properties of finite state
systems. Application of model checking to large systems is hindered by the
exponential growth of the number of states with the number of state
variables---a problem known as state explosion. This project addresses the
state explosion problem by a combination of three approaches: verification
management, automatic abstraction/refinement, and binary decision diagram
(BDD) technology. These approaches combine to give adaptive model checking,
in which the verification management component identifies the appropriate
partitioning and abstraction strategies and extracts from the design to be
verified information that guides BDD-based algorithms to efficient symbolic
state exploration.